Collaborative Research: TIE Research for RFID Microtag - NSF IUCRC

The Industry/University Cooperative Research Center for Engineering Logistics and Distribution at Oklahoma State University and the Connection One I/UCRC at Ohio State University aim to develop miniaturized RFID tags for high throughput sensing of container stability and integrity. The research will enable the PIs to address the relevant scientific challenges, leading to the establishment of a proof-of-concept implementation for miniature sensor tags to track the condition and history of individual packages within the container for global logistic operations.

Many valuable products and items of critical security need miniaturized RFID sensor tags for effective tracking and monitoring. This research will enable the development of a high throughput miniature RFID sensor tags for deployment in these critical applications.